Special Meeting: Recent Advances in Combinatorics, CRM Thematic Semester 2007

The 2007 special semester "Recent Advances in Combinatorics" will take
place at the Centre de Recherche en Mathematiques in Montreal, Canada
from January to July 2007. Combinatorics, a subject often motivated
by the simplest and most basic of questions, is nevertheless
breathtaking in its scope of techniques and breadth of applications.
Many combinatorial topics are very exciting at the moment, following
extraordinary recent breakthroughs in the understanding of some
fundamental and difficult questions. Of particular emphasis at
present is the development of a new "Combinatorics of Macdonald
Polynomials," which ties together far-flung topics in a surprising
way. The semester is organized as a series of four research
workshops, each with an associated preparatory school for graduate and
post-doctoral level participants. Each workshop/school combination
concentrates on an area in which current research advances are
occurring. This grant will support attendance at the workshops and
schools by graduate students and junior researchers from the United
States, giving them an unusual opportunity to interact with a large
number of the world's leading researchers in these areas, particularly
those from Europe and Asia.

Three main themes guide the topics of the workshops. (1) Relations
between Enumerative Combinatorics and Statistical Physics; more
specifically, the uses of enumerative techniques for the study of gas
models, Ising and Potts models, etc., for the purpose of computing
phase transitions or thermodynamic limits. (2) Algebraic Aspects of
Combinatorics on Words, underlining natural links with the study of
free groups, free fields, free Lie algebras, and of special properties
of continued fractions in relation with the study of Artin's billiards
and real quadratic fields. (3) Interactions between Algebraic
Combinatorics, Algebraic Geometry and Representation Theory, a theme
of two of the workshops. The emphasis here is on the study of
subjects such as Schubert varieties, Hilbert schemes, Gromov-Witten
invariants, and their ties with symmetric functions such as Macdonald
polynomials, and with classical combinatorial enumeration.